Disruptions in Independent Infrastructures

The objective of the research is to help ensure an efficient, effective
and equitable distribution of resources in responding to events that
cause disruption in infrastructure systems and to aid in designing
infrastructure systems that are robust under disruptions, due to
natural, human-caused or willful acts. The approach is to develop a
clear and unambiguous set of definitions of critical infrastructure
interdependencies; a mathematical representation of infrastructure
systems that incorporates interdependencies among and between systems;
algorithms that can be used to run the model(s) for vulnerability
assessment and emergency response; and a human-computer interface for
user interaction with the model.

If successful, the benefits will be an improved ability to both mitigate
the impact of and respond to events that have the capability to cause
large-scale, potentially catastrophic damage to critical infrastructure
systems. Critical infrastructure systems provide services that are
essential to both the economy and well-being of nations and their
citizens. As documented in a recent report to the U.S. Congress, it is
of vital importance that these services not be degraded, whether by
willful acts such as terrorism or by natural or random events such as
earthquakes. The research will permit different act and event scenarios
to be modeled, and their impact on the service provided by an
infrastructure system assessed. The result would be infrastructure
systems that are designed to be more resilient to disruptions, with the
expected loss of service reduced and the required level of service
restored more quickly.